Genetics of Segregation Distortion in Drosophila

Segregation distorter (SD) is a naturally occurring meiotic drive system on the second chromosome of Drosophila melanogaster. Heterozygous SD/SD+ males transmit the SD chromosome in vast excess over the normal homolog. The basis of the distorted transmission involves the induced dysfunction of the spermatids the receive the SD+ chromosome but the underlying molecular mechanism is unknown. The SD system comprises at least three distinct loci: Sd, E(SD) and Rsp. Our long term goals have been to characterize these loci with the aim of elucidating the structure, function, and origin of SD chromosomes. Molecular analysis of Sd indicates that it is associated with a tandem duplication of a normal genomic segment. The tandem duplication encodes an Sd-specific 4.2 kb transcript. In addition, the duplication specifies a family of 2 kb transcripts some or all of which are also present in Sd+. Sequence analysis of Sd and Sd+ cDNAs reveals that most members of the 2 kb family share the same ORF. cDNAs corresponding to the 4.2 kb transcript have not yet been identified. Our data suggest that the neomorphic phenotype of Sd results from expression of a novel fusion protein or from the ectopic or overexpression of a normal (Sd+) protein. To elucidate the molecular nature of Sd in greater detail we propose to: isolate and characterize cDNAs corresponding to the 4.2 kb transcript; use anchored PCR techniques to characterize the complete set of transcripts in the 2 kb family and to compare this array in SD and SD+ with emphasis on identifying any transcripts that may be Sd-specific or expressed preferentially in testes; raise antisera against the common ORF for Western blot and immunolocalization analysis of Sd and Sd+ polypeptides;a nd isolate and characterize Sd+ null mutations. Insight into the segregation- distortion system should enhance our understanding of a fundamental genetic mechanism, meiotic drive. But it is also clear that such an understanding could be of great practical use in designing gene vectors which have an insertion advantage.